GOALI: Crushing Heat and Mass Transfer Processes for Selective Oxidation of Biomass

Chemical processes often create unwanted byproducts. Byproducts waste valuable feedstocks, and they have to be separated from the desired products. This project will develop methods to reduce byproduct formation when converting plant-based materials into high value chemicals. The project will study how the movement of heat and reactants during oxidation affects biomass oxidation reactions. Unwanted byproducts can form if parts of a chemical reactor become too hot or become oxygen-poor. This project will explore ways to enhance the movement of heat and reactants. The results will make biomass oxidation more efficient and avoid conditions that drive wasteful side reactions. The research will foster industry-university research collaborations. The project will also train students at the university-industry interface and broaden STEM engagement through education and outreach activities.

This project will develop broadly applicable reaction-engineering principles for selective oxidation of biomass-derived molecules. The focus will be on systems where heat release and transport limitations strongly couple to chemistry. The core intellectual contribution will be to separate intrinsic catalytic behavior from transport-driven effects in three-phase reactor operation. This will allow the selectivity to be predicted and improved under process-relevant conditions. The project will combine controlled catalytic measurements with modeling. It will quantify how oxygen delivery, internal diffusion, and local heat removal affect product distributions during selective oxidation. Experiments will generate rate and selectivity data under conditions when performance is limited by transport rather than by surface chemistry. This project will also investigate emerging catalyst structures designed to overcome heat and mass transfer limitations. These comprise a thermally conductive core coated with a high surface area carbon layer containing metal nanoparticles. Complementary reactor-scale analysis will connect those data to temperature and concentration non-uniformities, such as localized heating and oxygen-lean regions. These arise as reactions are intensified, and can promote undesired reaction pathways. Results from the project will produce general design rules for catalysts that improve selectivity while sustaining high reaction rates. The academic-industry partnership in this project will accelerate translation of these insights to practical, scalable biomass upgrading reactions. Additional broader impacts will include translating research products to classroom content, working with undergraduate students to evaluate technoeconomic viability, and connecting with K-12 students through outreach activities.